CAREER: Origin and Evolution of Volatiles in Submarine and Subglacial Alkalic Magmas

CAREER: Origin and evolution of volatiles in submarine and subglacial alkalic magmas Jacqueline Eaby Dixon, Principal Investigator, University of Miami The PI proposes to investigate the origin and evolution of volatiles in alkalic magmas from submarine and subglacial volcanoes. The goal is to better understand variations in mantle volatile contents and the role of volatiles in controlling eruption dynamics of mafic melts. Sample suites include tholeiitic and alkalic glasses from Hawaii, the Southern Australs, and subglacial volcanoes in British Columbia. Concentrations and isotopic analyses of the major volatile species (H2O and CO2) will be measured using infrared spectroscopy, manometry/mass-spectrometry, and quantitative image analysis. The education component includes introducing interdisciplinary freshman seminars to enhance the undergraduate experience; for example, combining volcanology and archeology to study the impact of volcanism on human evolution. The seminars will be linked to field trips to key locales around the Caribbean and Mexico (Miami's "back door"). Also the PI will collaborate with Dr. James Hay at Lamont-Doherty Earth Observatory (LDEO) in a program to increase use of the "web" in earth science teaching.